AMC-SS: Stochastic analysis and random medium in continuous space and time

The PIs' research program in stochastic analysis, as part of NSF's
efforts in Analysis, Modeling, and Computation of Stochastic Systems,
ranges widely in probability theory and its applications to physical
systems. It focuses on models in continuous space and time, with turbulent
or otherwise chaotic behavior, and makes heavy use of infinite-dimensional
random objects, especially stochastic partial differential equations
(SPDEs) which feature white-noise behavior in time and various irregular
spatial behaviors, as well as non-white-noise-based objects which fail to
have the martingale or the Markov properties (e.g. fractional Brownian
noise). Specific topics to be covered, with corresponding physical
applications, are divided in three categories: (i) problems based on SPDEs
and their probabilistic representations, including Feynman-Kac approaches,
ranging from very basic questions of existence and uniqueness for highly
irregular coefficients, to quantitative questions on the asymptotic
behavior of linear multiplicative stochastic heat equations including the
Anderson model and directed polymers measures in Gaussian environments, to
questions of diffusive behavior around random Gibbsian
impurities/obstacles; (ii) specific physically motivated SPDEs:
magneto-hydrodynamics (MHD) in a turbulent environment, based on a
Feynman-Kac formulation and its connection to products of random matrices;
a framework for self-organized criticality unifying microscopic and
macroscopic time scales; (iii) extensions of the Russo-Vallois theory of
stochastic integration to general Gaussian and even highly non-Gaussian
processes, with SPDE applications to a genealogical framework for
connecting fractional Brownian motion to Kolmogorov operators.

The PIs' purpose for studying these topics is to come to a better
understanding of complex random ("stochastic") phenomena that change
simultaneously in space and time. While many typically think of chaotic
phenomena as being devoid of the possibility of predictable behavior, the
PIs choice of complex models is designed to illustrate how specific
inputs, no matter how random, invariably cause outputs which, while they
may look very random on a short time scale, do show extremely predictable
behavior in other scales of space and time, with important physical
consequences. For instance, the MHD model should be capable of exhibiting
the so-called "fast dynamo" effect, by which a magnetic fluid with low
viscosity (the earth's oceans, or its atmosphere, or the sun), when
subjected to a uniformly random energy input, will exhibit a magnetic
intensity which grows at a specific exponentially rate; this effect could
have applications to non-mechanical locomotion. Also of note is the model
for self-organized criticality, which can help understand two-time-phased
systems, such as avalanches: rather than being considered as events which
occurs instantaneously when a threshold is reached, the model will take
advantage of a heat-transfer setting reacting to a random environment in a
short time scale. Many of the project's other models are also based on the
idea that a random environment can have predictable effects, such as
non-diffusive behavior for polymers or particles around random impurities
or force fields. As mathematicians, the PIs are motivated by the beauty of
the continuous-time continuous-space probabilistic tools needed to study
these physical models, and remain true to their commitment to bridging the
gap between theory and applications. Graduate students working with the
PIs will take part in this project's fundamental aspects, and in
investigating quantitative issues via calculations or numerical computer
work. The PIs will encourage students from underrepresented groups to join
their research program.